Presidential Young Investigator Award: Chemical Dynamics of Rovibrationally Excited Molecules

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Vaccaro will study the spectroscopy, relaxation, and chemical reactivity of rovibrationally excited polyatomic molecules as a function of both the magnitude and type of excitation of the molecular framework. The first state-to-state measurements of polyatomic reaction dynamics will be performed. Novel multiple-resonance laser techniques will be used to prepare molecules in specific rotation-vibration states. %%% Studies of the reactivity of polyatomic molecules which contain chemically significant quantities of energy of excitation are important because of the information they can reveal about aeronomic and combustion-related processes. On a fundamental scientific level, these transient species can reveal much regarding the nature and origin of such phenomena as mode- or bond-specific chemistry and quantum chaos.